Travel Support for Particpants in the 4th Bouchet International Conference

The Edward Bouchet Abdus Salam Institute (EBASI) will convene its Fourth International Conference on Physics and High Technology for Africa August 6-10, 2001 in Contonou, Benin West Africa. The focus of this conference is on implications and relevance in current advances in pure and applied physics for emerging telecommunications technologies. The meeting is planned in conjunction with the Telecommunication Authority of Benin. The Institute for Mathematics and Physical Sciences (IMSP) of the National University of Benin, and the International Centre for Theoretical Physics (ICTP). The conference will consist of invited and selected presentations from refereed submissions. The conference proceedings will be published. The expected participants will include physicists and applied mathematicians from the African Continent from the United States and Europe. In addition to the motivations for scientific exchanges, the conference is also designed to allow all participants the opportunity to explore the possibilities for mutually beneficial transcontinental collaborations.